Energization and Disruption of Magnetic Arcades in the Solar Corona

Coronal mass ejections (CME's) provide a spectacular manifestation of solar activity. The plasma and magnetic flux ejected into the solar wind by CME's subsequently interacts with the Earth's magnetic field to produce geomagnetic disturbances. It is planned to investigate possible initiation mechanisms for CME's. This will permit examination of the hypothesis that CME's and flares are minefistations of a single event, an ideal or resistive instability of the overall magnetic configuration. The investigation will center around a study of the dynamical evolution of global coronal field structures (single and multiple arcades, as well as helmet streamer configurations) in response to shearing photospheric motions. The behavior of the corona will be modelled using time dependent magnetohydrodynamic (MHD) simulations. The global evolution of the coronal field will be followed self-consistently in spherical geometry over several solar radii in response to motions applied at the photosphere. The resulting evolution of the plasma density and velocity will be compared to available CME observations. Semi-implicit methods will be employed to allow for efficient computation of slow energy build-up in the coronal magnetic fields. Initially, a 2- dimensional (axisymmetrical) description will be used, followed by development of a 3-dimensional simulation and description.